Sintering of Model Ceramic Microstructures

The goal of the investigation in to study the effects of pore size and pore size distribution upon development of microstructure of ceramics processed using solid state sintering techniques. Model final-stage microstructures are tailor made using ultra-high-purity alumina powders containing latex spheres of controlled size, size distribution and amount. These model controlled microstructures include undoped alumina with uniform pore distribution, undoped and nonuniform pore distribution, and sintering models will be tested.